Microlithographic Manipulation of Macromolecules

Microlithographic quasi-two-dimensional complex surfaces will be constructed through which DNA will be electrophoresed. The motions of large single molecules through these obstacle arrays will be observed using real-time fluorescence imaging techniques. %%% These devices should allow the fractionation of DNA molecules at the chromosome length scale in a highly reproducible environment. The ability to bind and move very long DNA molecules through synthetic microlithographic surfaces may be used to align chromosomal length DNA molecules on complex designed surfaces, to analyze the DNA sequence using scanning techniques and to probe DNA structure using optical sensors. The overall aim of the project is single molecule processing.